Mathematical Modeling of Mammalian Cells

This research is part of an extensive effort to reduce the high cost of mass cell culture by a large factor. A mathematical model can be a powerful tool to optimize culture processes. This proposal presents a project to create a mammalian-cell model which will describe quantitatively the effects of environmental and genetic variations on cellular response in terms of growth, morphology, and the expression of certain gene(s) of interest. Such a model should be useful for design, control and optimum operation of biological reactors for the biosynthesis of mammalian cell products.